MGR Honorable Mention: Michael Morales

This special award will give Ph.D student Michael Morales additional flexibility in pursuing his graduate studies and research initiation in psychological research. This award will strengthen minority participation in research in this area.